Seismic Reflection Imaging of the Northridge Earthquake Epicentral Region

9416773 Okaya This project will acquire, reprocess and interpret 60-200 miles of recent industry seismic reflection data from the epicentral region of the January 17, 1994 Northridge earthquake. The data will be used to provide constraints on geologic models of the Northridge earthquake source zone and to study the geometry of faulting in the epicentral region. The results will be integrated with seismic refraction data collected as part of the Los Angeles Region Seismic Experiment through out the Northridge epicenter. The data, which was collected using Vibroseis sources, will be provided by Chevron and at least three other companies. This study is being adopted by the American Geophysical Institute as one of their first pilot projects to archive and make public data that are no longer of commercial interest but that have societal and/or scientific relevance. The results will provide images of the causal fault for the Northridge earthquake, possible mid-crustal detachment surfaces and the Moho, and will thus provide important constraints for all mechanical and kinematic models of the region.